Postdoctoral Fellowship: MSPRF: Pursuing Higher W-symmetry

This award is made as part of the FY 2025 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Surya Raghavendran is “Pursuing Higher W-symmetry”. The host institution for the fellowship is Yale University and the sponsoring scientist is Sam Raskin.